A Conference to Discuss the Mathematics and Science Teacher Preparation and Enhancement Programs at Predominantly Minority Institutions

9450458 McBay This project addresses the need to assess the status of the mathematics and science teacher education programs at predominantly minority institutions to determine what changes, if any, are required to ensure that future graduates of these institutions and current teachers who receive in-service training from these institutions are able to provide the quality of mathematics and science instruction needed by today's students. The Quality Education for Minorities (QEM) Network will convene a conference of approximately 80 people from among the Deans of the School of Education or Chairs of the Department of Education and Chairs of the Mathematics, Biology, Chemistry, or Physics Departments at 20 minority institutions that are major producers of minority teachers. Conference participants will assess the status of the current mathematics and science teacher education programs at these institutions; discuss national teacher and mathematics and science curriculum standards and challenges in meeting them; learn about advanced instructional technologies and model strategies at participating institutions; and identify potential strategies and collaborations to ensure the production of graduates who can meet the standards expected. Conference Proceedings will be produced and broadly disseminated. A special target audience for the Proceedings will be other predominantly minority colleges and universities with teacher education programs throughout the country.